U.S.-Australia Joint Workshop on Heat Tolerance in Temperate Cereals / Kona, Hawaii / February 1994

9316914 Paulsen This award will support the participation of ten U.S. scientists to take part in a workshop on heat tolerance in temperate cereal plants to be held at Kona, Hawaii in February 1994. The American coordinator is Prof. Gary Paulsen from Kansas State University. The Australian organizer is Dr. Ian Wardlaw of the CSIRO Institute of Plant Production in Canberra. The workshop is being conducted under the U.S.-Australia Cooperative Science Program and support in Australia is provided through the Department of Industry, Technology and Regional Development (DITARD). Recent advances in both the U.S. and Australia have increased the understanding of heat shock and high temperatures on grain yield and quality. This workshop will provide an interactive forum for scientists in molecular biology, plant physiology, plant genetics and cereal chemistry to discuss high temperature stress in plants. Although the workshop is primarily concerned with the response of wheat to high temperatures, other crop plants and biological systems will be included where they can assist in better understanding the mechanisms which result from stressful environments.